U.S.-Bulgaria Research on the Behavior of Ceramic Coatings when Exposed to High Temperature Particulate Flows

This U.S.-Bulgaria research project between Dr. Widen Tabakoff and Dr. Awatef Hamid of the University of Cincinnati and Dr. Vesselin Shanov of the Technical University of Sofia, Bulgaria, will perform complementary research tasks at their laboratories related to new temperature materials which are resistant to erosion. Professor Shanov from the Technical University of Sofia will develop high temperature erosion resistant ceramic coatings which will be further investigated at the University of Cincinnati in regard to erosion and surface impacts when the new coatings are exposed to high temperature particulate flows. The proposed cooperative research project involves the collaboration of the two teams in conducting complementary research tasks which will enhance the knowledge derived from their research efforts, and will produce new results that will benefit the scientific community in the critical area of erosion and high temperature materials. This project in aerospace and engineering metallurgy fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool resources in areas of strong mutual interest and competence.